Augmented Touch at a Distance: Intelligent, Body-Scale Haptics for Vision Impairment

Visual impairment is a major health issue that affects the quality of life for many people. This project will develop a sensory augmentation system that will help people navigate complex environments. The system of devices will use the physical sense of touch to enable people to “feel” shapes and structures of surrounding objects. The project will integrate the devices into breathable, everyday clothing to deliver touch cues. These cues will indicate obstacles and guide users toward objects of interest. The clothing will be designed for adaptability, cost-effectiveness, and user-friendliness. The project will advance fundamental knowledge in wearable electronics, perception, and artificial intelligence. This project will also build talent in engineering by developing practical, lab-based experiences for undergraduate students and by introducing new graduate coursework for graduate students.

Skin presents unique challenges for delivering clear, reliable touch-feedback across large areas. To address this, the team will develop a wireless mesh network of modular haptic units and integrate them into everyday clothing. The system will deliver rich touch feedback that approximates natural tactile sensations. Bistable, bioelastic operation will keep the devices compact and energy efficient so this feedback can be distributed across the body. Objects in the user’s surroundings will be detected using cameras and time-of-flight sensors. A large-language model will translate plain-language instructions from the user for on-demand personalization. This code will define how haptic feedback responds to obstacles and points of interest detected by the connected sensors. Principles of active perception will align feedback with natural movements, making it more intuitive and reducing training requirements. Feasibility studies with blind and low vision people will evaluate functional performance, user preference, comfort, and affective responses. This project will examine how users can “feel” obstacles and waypoints using the haptic system as they navigate and engage with their surroundings. Overall, this project introduces a new AI-enhanced, user-driven strategy for touch-based navigation.